Analysis of Performance Failures in Civil Structures and Large Buildings

The objective of this project is to complete an investigation of structural failures and performance data concerned with constructed facilities. The investigation will identify causes and types of failures for such structures as: bridges, buildings, pavements, and other public works. The data derived from the project will be widely disseminated to decision-makers for corrective action.